Motives Associated to Graphs

This project concerns motives in the sense of arithmetic algebraic
geometry which can be associated to graphs. Periods associated to
these motives arise as coefficients in the perturbative expansion for
the Feynman integral in quantum field theory. These periods are
frequently related to multiple zeta values. The researcher will
investigate aspects of this relationship; particularly the
renormalization problem and its relations with limiting mixed Hodge
structures.

This work will try to clarify an interesting relation between graph theory,
quantum field theory, number theory, and the theory of
motives. Physicists have shown that correlation functions describing
the behavior of elementary particles can be calculated by certain
series indexed by graphs. In many special cases, the coefficients in
these expansions are Riemann zeta or multiple Riemann zeta values. The
calculation of these coefficients involves the graph laplacian, a
polynomial which first arose in the 19th century study of electric
circuits. The zeroes of the graph Laplacian define an algebraic
variety, and the central object of study will be the corresponding
"motive" which serves to unify the diverse combinatorial and
arithmetic structure.